SBIR Phase I: The Automated Forensic Economist: Towards Affordability, Transparency, and Efficiency in Forensic Economics

The broader impact/commercial impacts of this Small Business Innovation Research (SBIR) Phase I project capitalizes on the inefficiencies of the existing expert witness industry and brings affordability, versatility (unlimited scenario generation), simplicity, transparency, and
standardization to legal proceedings. The team will develop an ecosystem that will keep experts accountable and credible (using a peer-review system) and allow lawyers and their clients to be better informed with enhanced access to high-quality services. The team has validated that a profitable market exists for a standardized and automated method of evaluating economic losses in civil legal disputes in an automated, fast,
inexpensive, standard, and objective manner. The quality of expert witness services will increase across the industry, as experts will be able to focus more deeply on the more disputed issues of litigation rather than the automatable portions of the estimation process. Better-informed attorneys and firms will be able to counsel their clients and develop better legal strategies throughout the process, while judicial personnel and juries will benefit from improved legal and expert witness services, gaining access to more standardized information to make better, more-informed decisions and be less susceptible to biased or inaccurate opinions.

This SBIR Phase I project consists of a set of deterministic algorithms intaking user inputs (facts and data regarding parties in a lawsuit) and retrieving relevant data series from pre-harmonized external databases, which are then processed through a set of economic and statistical computations, producing a set of outputs, including an estimate of financial gains (losses) for the lawsuit characterized by user inputs. The proposed innovation improves on the inefficiencies of the existing expert witness industry in several dimensions, and as a result brings affordability, versatility, simplicity, transparency, and standardization. In Phase I, the algorithm and a usable prototype for capturing employment and personal injury-related financial gains (losses) estimation will be developed.